Organic Photochemical Reactions on Solid Surfaces. Enrich- Ment and Separation of Isotopes

The goal of this research is to develop a technique for the separation of 12;iC and 13;iC by photolysis of dibutyl ketone in a magnetic field. Earlier work shows that separation factors of about 1.4 can be obtained when the dibutyl ketone is confined in micelles. The same effect can be achieved when the dibutyl ketone is confined within the pores of a silica particle. The research centers on the use of a fluidized bed photolysis reactor to implement earlier results into a useful process. This particular configuration for a photochemical reactor is unique and may provide insights into such other areas as heterogeneous catalysis.